Partnerships Leading to Active Transformation of Teacher Education (PLATTE)

Elizabeth Kean DUE 9453602 University of Nebraska, Lincoln FY1995 $57,912 Lincoln, NE 68588 CETP Development Grant Title: PLATTE: Partnerships Leading to Active Transformation of Teacher Education Practicing K-12 teachers are in residence in mathematics and science departments at the collegiate level working in partnership with and as a resource for collegiate faculty developing and teaching introductory courses in mathematics and the sciences designed for prospective teachers, K-12, of mathematics and the sciences. The teacher's residence provides a year long professional development experience for teachers who will be an integral component of successful field experiences for preservice teachers. The program also encourages participating teachers to become lifelong learners. The postsecondary faculty members benefit by having a rich resource from which to develop new content and pedagogy. The project brings solid content knowledge as well as classroom experiences and insights into the way young people do and learn mathematics and the sciences.